Summer Undergraduate Research Experience Fellowships in Geosciences

Stevens 9623451 The Summer Grants Program of the Council on Undergraduate Research offers fellowships to student/faculty teams to conduct 10-week research projects at their home institutions. This program helps to remedy a problem faced by students and faculty in which the institution cannot sustain an REU-Site and the student cannot reasonably travel to an REU-Site to participate in a research program. Increases in resources available to CUR have slowed, creating particularly acute funding limitations in the Geosciences. Among proposals in 1995, only 20% were funded, while at least three others would have been had the resources been available. This award will provide base funding for CUR-GEO, including sufficient funds to support three fellowships each year for three years. In addition, NSF will match non-federal dollars raised by CUR up to the cost of three additional fellowships. The matching funds are intended to encourage additional contributions to CUR-GEO. The fellowship recipients will be selected by CUR through its established mechanisms. Results will be presented in CUR-sponsored poster sessions at regional meetings of the Geological Society of America.